CAREER: A Detailed Look into the Lives of Red Supergiants with Optical Interferometry

Red Supergiants (RSGs) are a late stage in the life cycle of stars of 9 – 25 solar
masses. During the RSG stage, these stars experience significant mass-loss, and
this lost mass enriches the interstellar medium, playing a significant role in the chemical
evolution of the Universe. This project will use high resolution imaging
from optical interferometry (OI) to study RSGs. High resolution imaging of stellar
surfaces produced via OI enables the study of changes on stellar surfaces at
unprecedented detail. Results from this project will help determine the role
of convection in driving mass-loss in RSGs. This research will be conducted at New
Mexico Tech, a Hispanic serving institution. Two PhD and four undergraduate students
will be supported (per year) by this project to collect observations, participate in data
reduction, and contribute to model development. Outreach initiatives will involve public
talks, volunteering at state-level science competitions, and collaboration with StarDate
to produce radio shows that communicate the excitement and results of the research.

High resolution imaging of stellar surfaces produced via optical interferometry (OI)
enables the study of changes on stellar surfaces at unprecedented detail. This project
will use the Center for High Angular Resolution Astronomy (CHARA) Array and
Magdalena Ridge Observatory Interferometer (MROI) to collect OI data for image
reconstruction of RSGs at different stages of evolution. Stars of angular diameter
greater than 4 mas will be used to study both large convection features and
smaller granulation-like features. By comparing images reconstructed from data
covering continuum wavelengths to those covering molecular bands, it is possible to
study the link between surface activity and the formation of molecules further up in the
stellar atmosphere. The project will also develop new image reconstruction tools to
maximize the scientific output of the data. Techniques and models developed in this
program will benefit other users of optical interferometers, and all software will be
made publicly accessible. The model refinements will have an impact on other
aspects of astrophysics, such as the study of stellar evolution in other galaxies.